Polyhedral Combinatorics in Representation Theory and Algebraic Geometry

The project focuses on cluster algebras recently discovered by the
investigator in collaboration with S.Fomin. Cluster algebras are
integral domains of a special kind designed to provide an
algebraic framework for the study of total positivity and
canonical bases in semisimple groups and their representations.
The investigator studies structural properties of cluster algebras
and their quantum deformations. This study uncovers unexpected
connections with such diverse subjects as the structural theory of
Kac-Moody algebras, thermodynamic Bethe ansatz, quiver
representations, and integrable systems. One of the main
instruments of the study is polyhedral combinatorics, more
specifically, an interplay between piecewise-linear and
subtraction-free birational transformations based on the tropical
calculus.

The main motivation for this project comes from two classical areas
of mathematics: representation theory and the theory of total
positivity. Representation theory is a mathematical approach to
studying symmetry; more specifically, it encodes the symmetry
properties of various physical and biological systems that occur in
nature. Total positivity is a remarkable property of matrices (arrays
of numbers) that generalizes the familiar notion of positive numbers.
Both theories
find numerous applications in physics, chemistry and other
sciences, as well as in other mathematical disciplines. In fact,
representation theory serves as the mathematical foundation of
quantum mechanics, while total positivity is a major tool for
explaining oscillations in mechanical systems. During the last
decade, deep connections were found between the two fields, and
the scope of their applications was greatly extended. This
project explores the modern framework of representation
theory and total positivity, with the goal of making its formalism
much more explicit and understandable.